Computer Science, Mathematics, Engineering, and Technology Scholarship Program

The Computer Science, Mathematics, Engineering, and Technology Scholarship Program is providing scholarship support to talented students who demonstrate financial need to encourage and enable academic achievement and to increase the number of graduates in areas of national need. This program provides scholarships to junior and senior level undergraduates pursuing degrees in computer science, computer technology, engineering, engineering physics, engineering technology, and mathematics. The program has a structure for supporting, developing, and retaining minority and women students in these degree areas toward increasing the number graduating for the high- tech industrial workforce or for continuation for advanced degrees. Much of the student- support infrastructure necessary for the successful graduation of scholars comes from existing programs at North Carolina A& T State University. The new NSF- funded TALENT- 21 Project at the University provides some of the student- support infrastructure for scholars, and the TALENT- 21 Project goals and objectives are inclusive of those of the NSF CSEMS Program.